Manatee Community College Connection to the Internet

9521955 Palmer The Manatee Community College requests support from NSF for connection to the Internet through the SURAnet regional network. SURAnet is the midlevel network located in the state of Florida that will provide operations and information services. It will provide the Manatee Community College with a connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The College needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff, and students of Manatee Community College.